Dissertation Research: Late Classic Nonplatform Structures and Settlement at Itzan, Peten, Guatemala

Under the direction of Dr. Michael Coe, Mr. Kevin Johnston will conduct archeological research at the site of Itzan to collect data as part of his doctoral dissertation research. Itzan, located in the Department of Peten, Guatemala, dates from the Late Classic Maya period (AD 550 to 900) and documents this complex society at the height of its development. Because of a road which was recently cut across the site, Mr. Johnston has located a series of cultural occurrences which appear in the cut profiles along the sides of the roads. Because these small or "hidden sites" appear not to be associated with architecture, they are invisible from the surface and have been found only by the greatest of luck. Mr. Johnston will produce a large scale map of the area, which includes many buildings which are visible from surface remains, to determine the relative position of the hidden structures. Several of these sites will then be excavated and the materials recovered compared from those from larger sites. By these means, it should be possible to determine what functions these hidden sites served. This research is important for several reasons. First, archaeologists have long suspected that such small "hidden" sites might exist. However, rarely has it been possible to locate them. Since researchers use the distribution of known archaeological remains and the patterns observed among them to derive population estimates and reconstruct how prehistoric Mayan society functioned, the results may be seriously in error if an entire class of remains has been missed. Mr. Johnston's work raises this possibility, and it is, therefore, important to understand what these hidden sites are and the role they served in the broader cultural picture. Secondly, Mr. Johnston is an extremely competent young scientist and this research will significantly add to his training.